Magnetism and Magneto-Optics of Artificially-Structured Materials

This project involves studies of novel magneto-optically active materials. The structures include artificially structured magnetic multilayers, thin films and nanoscale clusters of nanocrystalline composites, and manganese-based compounds and films with anisotropic structures. The work will focus on 1) the relationships between magnetization reversal, domain dynamics, and nanostructures of the films, and 2) fundamental magneto-optical properties of novel phases synthesized to produce significant magneto-optic effects. A range of magnetization measurements will be performed. In addition, spectroscopic ellipsometry will be used to fully characterize the dielectric tensor properties of the materials. In selected cases, photoemission measurements will be used to study the electronic structure of the new compounds. The measurements will increase the understanding of fundamental relationships between electronic structure and magneto-optics in several new classes of transition metal compounds. %%% Magnetic thin films and particulate magnetic materials are being synthesized and studied to determine their megneto-optic properties -- which are critical in determining their utility as magnetic storage media. The objective of the research is to prepare new materials with enhanced properties and potential for use in optical storage discs, computer hard discs, and other form of magnetic storage device. The fundamental properties of the materials will be investigated by magnetic and optical spectroscopy techniques.